RUI: Acquisition of a 300 MHz Nuclear Magnetic Resonance Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Gonzaga University will acquire a 300 MHz NMR Spectrometer, workstations and printer. This equipment will enable researchers at this undergraduate institution to carry out studies on a) the preparation of novel solid state materials, including nonlinear optical materials and intercalated materials; b) the synthesis and characterization of biomolecular analogs that will be useful in probing the structure of proteins and other biochemical macromolecules; c) synthetic organic chemistry and development of new methodology for the synthesis of polyketide natural products; and d) the synthesis of transition metal porphyrin complexes that may serve as models for metalloenzymes. This equipment will also be used in upper-division chemistry laboratory courses.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry and biochemistry.